Presidential Young Investigator Award: Quantitative Models for Optimal Provision of Goods and Services

This recommended award provides research support to Dr. Brandeau under the Foundation's Presidential Young Investigator Awards (PYIA) program. The research concerns the development and solution of mathematical models of production systems, with focus on facility location, manufacturing, and health care delivery systems. Specifically she is developing analytical solutions for a variety of planar location models, analytical worst case bounds for composite heuristics in job shop scheduling, and a medical school financial planning model. These are all extensions from her previous research. Dr. Brandeau has made significant contributions to her field of engineering and has potential to become a leader in academic research and education. The objectives of the Presidential Young Investigator Award program are to provide research support to the nations most outstanding and promising young science and engineering faculty. The awards are intended to improve the capability of U.S. academic institutions to respond to the demand for highly qualified science and engineering personnel for academic and industrial research and teaching. In accordance with these objectives, a Presidential Young Investigator Award is recommended for Dr. Brandeau. This is a five year continuing grant, with expected future funding levels of $62,500 for FY89, FY90, FY91, and FY92.